CSR: Medium: Energy-Efficient Architectures for Emerging Big-Data Workloads

In modern server architectures, the processor socket and the memory system
are implemented as separate modules. Data exchange between these modules
is expensive -- it is slow, it consumes a large amount of energy, and there
are long wait times for narrow data links. Emerging big-data workloads will
require especially large amounts of data movement between the processor
and memory. To reduce the cost of data movement for big-data workloads,
the project attempts to design new server architectures that can leverage
3D stacking technology. The proposed approach, referred to as Near Data
Computing (NDC), reduces the distance between a subset of computational
units and a subset of memory, and can yield high efficiency for workloads
that exhibit locality. The project will also develop new big-data
algorithms and runtime systems that can exploit the properties of the
new architectures.

The project will lead to technologies that can boost performance and
reduce the energy demands of big-data workloads. Several reports have
cited the importance of these workloads to national, industrial, and
scientific computing infrastructures. The project outcomes will be
integrated into University of Utah curricula and will play a significant
role in a new degree program on datacenter design and operation. The
PIs will broaden their impact by publicly distributing parts of their
software infrastructure and by engaging in outreach programs that
involve minorities and K-12 students.